Minority Postdoctoral Research Fellowship

9308053 Mezzacappa This three year plan of postdoctoral study will allow Ms. Mezzacappa, through extensive training in psychophysiological measurement, the opportunity to develop an important research program toward understanding the influence of group cohesiveness and threats of punishment for non-conformity on likelihood of conformity and stress responses under a group pressure situation. ***